NSF Young Investigator

9357526 Montelione Dr. Montelione will use NMR to characterize internal motions in macromolecular complexes and intermolecular interfaces by measurements of amide proton exchange rates and heteronuclear relaxation rates. He will measure saturation-transfer between solvent and surface amide proton sites using pulsed field gradient heteronuclear NMR experiments. Dr. Montelione will also use new technology for characterizing short-lived bound water molecules on the surfaces of proteins and determine how these molecules are displaced by ligand binding or complex formation. These represent the next generation of techniques needed for studying molecular recognition. %%% The proposed research involves development of heteronuclear multidimensional NMR methods, biotechnology, and computer software for characterizing molecular recognition in macromolecular complexes. The technology will be applied in studies of protein-protein and protein-nucleic acid complexes. ***